Developing a Telematics Platform for Bridge Monitoring and Health Prognostics

A collaborative research effort will be performed at the Industry/University Cooperative Research Center (I/UCRC) for Repair of Buildings and Bridges with Composites at North Carolina State University and the I/UCRC for Intelligent Maintenance Systems at the University of Cincinnati. The project will focus on Developing a Telematics Platform for Bridge Monitoring and Health Prognostics, as aged and deteriorating bridges are becoming more sever choke points in the economic strength and growth of the United States. The approach in this project integrates the extensive research on bridge damage physics and the instrumentation of bridge monitoring systems conducted at the I/UCRC for Repair of Building and Bridges with Composites , with the future-based smart prognostic agent, developed by the I/UCRC for Intelligent Maintenance Systems to accurately quantify and predict bridge deterioration.

The development of health prediction for reinforced bridges will advance the state-of-the-art technologies in today's bridge health monitoring systems. It will enable bridge designers, builders, and administrators to intelligently utilize appropriate information, which will greatly reduce cost throughout a bridge entire life cycle.